U.S.-China Workshop on Neural Interface Science and Technologies, May 2006

Abstract
OISE-0527231
He, Ji-Ping (Arizona State University)
US-China Workshop on Neural Interface Science and Technologies
This award supports the first joint USA-China workshop ever to be held on neural interface technology. The workshop, jointly organized and sponsored by Arizona State University and Huazhong University of Science and Technology (HUST) in Wuhan, Fudan University in Shanghai, and Tsinghua University in Beijing, China, will take place at HUST in China, May 2006. The major objective of the workshop is to discuss the technical advancement and challenges facing researchers in this emerging, fast growing and important field. It is expected to give rise to significant new US-China collaborations that advance the field. This award is aimed to encourage and attract the participation of young scientists and graduate students to begin work on neural technology and its applications. 60-80 people, 30 from the USA and 40 from China, and a few from other countries will attend the workshop.